U.S.-Germany Cooperative Research: Improving Simulations of the Global Hydrological Cycle

9909938
Frank
This award supports William M. Frank and one or two graduate students from Pennsylvania State University in a collaboration with Klaus Fraedrich of the Department of Meteorology at the U. of Hamburg, Germany. The project will focus on the study of long-term variations in the Earth's hydrological cycle, and will make use of the University of Hamburg's Portable Climate Model of the Atmosphere. The University of Hamburg is one of the leading climate modeling centers in the world, and Penn State has a long record of excellent work in convection studies, so the collaboration combines complementary expertise. Their topic of study-the interaction of cumulus convection and climate-is a key climate issue and should lead to far-reaching results of importance to our understanding and modeling of climate and climate change.